Sediment Resuspension and Deposition from Flooding Associated with Hurricane Floyd: A Rapid Response Proposal

Funding is recommended for a Rapid Response Proposal to study the sedimentological aftermath of the mid-September Hurricane Floyd and the flood that followed and crossed the coast of North Carolina. Two questions are to be addressed: 1) What kind of sedimentary signature does a 100-500 year flooding event leave behind the Outer Banks barrier inslands? and, 2) Is there widespread mobilization of fine-grained recent sediments from temporary storage in estuarine areas? Sedimentary accumulation and remobilization processes are important to understand not only for the sequestration of sedimens and metallic and organic pollutants, but also for nutrient storage and release. The study provides a unique opportunity to answer some of the more important questions related to sequestration and resuspension/redoposition of sediments by major storms.